Latest in Geometric Analysis

This award provides funding for US participation in the conference "Latest in Geometric Analysis" that will be held November 24-30 of 2019 at the Mathematical Research and Conference Center in Bedlewo, Poland.

The conference focuses on recent developments in Analysis, especially in the fields of geometric analysis and geometric measure theory. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: https://www.impan.pl/en/activities/banach-center/conferences/19-latest